ITR: Efficient Algorithms with Implicit Input Data

The main objective of this research is to establish methods for
theoretical study of algorithms for which the access to the input data is
provided in an implicit way. Such models of computations arise naturally
in the context of algorithms working with large data sets. The implicit
input may correspond either to a partial data in situations when the
entire data cannot be directly accessed (for example, because it is
prohibitively expensive), or it may correspond to compressed or coded
data. It happens when only such data is stored in the system and no direct
access to the real data is provided or is available.

Traditionally, complexity theory deals with the classical definition of
the explicitly given input data: the input is given explicitly and the
generally accepted standard is to search for algorithms having the
complexity linear, or at least polynomial in terms of the input size. Such
algorithms are viewed usually as the most efficient. However, this
significantly changes if we deal with massive data. It is sometimes
necessary to find good algorithms which deal with implicitly given data
and access only small part of the data (e.g., a random sample), or small
compressed or encoded representation of the data. The information which we
have about the data is now of size which would be substantially much
smaller than the size of the whole original input. In the extreme
situations it can be even constant (small sample sufficiently well
approximating, with high probability, the exact output).

The main theme of this research is to understand the relation between the
complexity of the problems in the classical model (where the access to
data is given explicitly) and the problems in the model in which the
access to the input is implicit. The main focus is on study algorithms for
one- and two-dimensional compressed texts, algorithms for property
testing, and sampling-based approximation algorithms. In case of texts the
implicit input is the compressed version of the input and in the case of
property testing the reduced input is usually a small sample of the input.
In the latter case, the we also deal with the problems on preprocessed
input: an oracle provides fast answers to some basic structures underlying
the input data, e.g., (in geometric setting) orthogonal range queries. In
this case the implicit access to the input is constrained by range of
allowable queries and by the input data representation. The goals for this
research are to advance the state-of-the art in algorithms with restricted
access to the input data in general, in particular algorithms for
compressed texts and sampling-based property testing and approximation
algorithms.

The intellectual merit of this proposal is wide and it involves advances
in computational complexity of new classes of problems: pattern-matching
in compressed or fully compressed one and two-dimensional texts, property
testing with access only to a small portion of the input data and abstract
combinatorial algorithms dealing with implicit input data. It is a belief
of the investigators that new aspects of the algorithmic efficiency
explored in this research may initiate an important and novel area of
computer science. This would be of great importance in time and space
effective processing of massive data, as well as of great importance in
pure theory. The end-result of this research effort are an understanding
of the effects of special access to the input data on the efficiency of
related algorithms.